Towards Predictability and Portability in Embedded Software

Henzinger, Thomas
CCR-0208875
"Towards Predictability and Portability in Embedded Software"

This project develops, implements, and validates platform-independent programming models for embedded software with hard real-time constraints. For high-performance control applications, the time-triggered programming language Giotto is implemented by targeting the Embedded Machine. The Embedded Machine is a virtual machine that mediates in real time the interaction between software processes and physical environment processes. The Embedded Machine is ported to single-CPU and distributed platforms.
Embedded Machine code is validated by schedulability analysis.